Dating Ancient Antarctic Ice with Cosmic-Ray-Produced 26Al and 10Be

In this project we will develop a new method of dating million-year-old ice from Antarctica. The NSF Center for Oldest Ice Exploration (COLDEX) Science and Technology Center has retrieved cores from the Antarctic Ice Sheet containing ice more than 6.5 million years old. But unlike ice from cores drilled vertically into central domes in the ice sheet, the ancient ice comes from a region of complicated flow and folding near its edge. Here, ages are discontinuous and the resulting sample coverage is fragmentary. Every sample needs to be dated before we can place its chemical and isotopic composition in the history of the ice sheet and the unique record of atmospheric chemistry being assembled by the COLDEX project. This project will create a dating method based on measuring isotopes produced by high-energy cosmic rays in the atmosphere which fall out and accumulate in the ice sheet. The main challenge is to measure one of these isotopes - Aluminum-26 - at levels below 200 atoms per gram of ice (roughly one hundredth of a part per billion of a part per billion). This project will detect and measure this isotope using atom-counting accelerator mass spectrometry. This project will train students in ultra-sensitive analytical methods, techniques that also have important applications in high-tech manufacturing, national security, and nuclear and aerospace engineering.

This project uses a dating method based on the ratio of the rare nuclides Aluminum-26 and Beryllium-10. Both are produced in the atmosphere by cosmic radiation and transferred to the ice sheet in snowfall; thereafter the Aluminum-26/Beryllium-10 ratio decreases with age, with a half-life of 1.43 million years. To validate the dating method, this project will investigate the constancy and uniformity of the atmospheric production ratio, by measuring multiple samples of zero-age ice. This project will explore the effect of deep in-situ production of Beryllium-10 in ice by cosmic ray muons, which may complicate dating of shallow samples. Previous efforts to implement this dating method have been thwarted by the difficulty of measuring Aluminum-26 at the low levels present in kilogram samples of ice. This project will overcome this limitation using a newly developed beamline and gas-filled magnet spectrometer at the Lawrence Livermore Center for Accelerator Mass Spectrometry, which should deliver unprecedented analytical sensitivity. This dating technique will complement existing dating methods based on (i) cosmic-ray-produced Krypton-81 and (ii) the isotopic composition of trapped atmospheric Argon, allowing for the evaluation of systematic effects and uncertainties. This method will additionally generate a record of atmospherically produced Beryllium-10 concentrations in COLDEX ice, adding a parameter to those already being used to assess its paleoclimatic and glaciological context. In very old samples - beyond the anticipated 3-4 Myr range of the dating method - the build-up of muon-produced Beryllium-10 may help to reveal whether ancient ice has been stored deep in the ice sheet until recently or has been trapped close to where it is now found, in shallow, long-lived regions of near-stagnant flow.